Undergraduate Research in Biology

This award provides funds to the Department of Biology at Princeton University to continue a successful Research Experiences for Undergraduates SITE. Advertising for the program will begin with the mailing of information packets to over 200 institutions nationwide. Special efforts will be made to recruit students from underrepresented groups, including 1) mailing packets to the Directors of the MARC program as well as to institutions with substantial populations of minority students, 2) attending annual meetings of minority students in the MARC Program and those from institutions in California, 3) establishing sister relationships with two minority colleges (Spelman and Lincoln Colleges) to facilitate participation of their students in the Princeton REU program, and 4) visiting several other schools whose students are predominantly from underrepresented groups. The REU program at Princeton is modeled after the undergraduate curriculum in molecular biology, which has a strong research component. A faculty committee will select the participants, who will confer extensively with the faculty advisor of their choosing to formulate a detailed research plan. From mid-June to mid-August students will conduct original research with close guidance and supervision from their faculty advisor and will have many opportunities for scientific discussions. The program will culminate in a poster session, at which all participants will present their research results to the entire Department.